Support for Student Travel to the AGU Chapman Conference on Modeling the Ionosphere/Thermosphere System

This project supports travel costs for students attending the American Geophysical Union Chapman Conference on "Modeling the Ionosphere/Thermosphere System". The conference will address the current state of large-scale, complex computational models of the coupled upper atmosphere as well as future modeling needs of the ionosphere/thermosphere (IT) research community. Specific objectives of the conference are to provide the IT community, including its student members, with the following:
- an overview of existing IT models
- examples of model applications
- data/model comparisons
- assessment of model strengths and weaknesses
- identification of future efforts to improve IT modeling capabilities